Planning "Inside Phoebe's Field"

This planning grant seeks funding for demonstrating proof of concept for the proposed traveling exhibition "Inside Phoebe's Field." It is an outgrowth of the prior NSF project (9979287) that resulted in an interactive book for middle-school age girls. This project extends the book through exploring the feasibility of using mixed reality in an exhibit format as well as virtual environments using the Internet.

Intellectual Merit: The project will further the technology-enhanced three-dimensional storytelling approach by development of selected science exhibit prototypes. The project team combines academic, museum and professional expertise, as well as a partnership with the Girl Scouts of the USA.

Broader Impact: This project will provide the ISE field valuable feedback about the use of metaphor in storytelling in a science-based exhibition, as well as about the application of new technologies (virtual reality, augmented reality technologies and interactive electromechanical events) for creating exhibit experiences. At the same time it will further the development of a national traveling science exhibition whose primary target audience will be girls from ages 10 to 13.